Influence of Atmospheric Layers Determined from MOZAIC Aircraft Data on Atmospheric Dynamics and Chemistry

The MOZAIC data set, measurements obtained from instrumented commercial aircraft in Europe, provides new observations of water vapor and ozone that supplement the traditional radiosonde and ozonesonde networks. Initial analyses suggest that the water vapor and ozone occur in multiple, relatively thin, layers in the troposphere. Dr. Newell will explore whether this layering has an important influence on the large-scale dynamics of the troposphere and the thermal structure of the atmosphere, at least as compared with the effect of cyclones and anticyclones. It is not obvious whether or not the layering should make a difference, but if it does, the implications for atmospheric modeling and atmospheric observational systems are enormous. This preliminary study should provide a clear indication of whether the topic is worth pursuing in greater depth. Support for this project is being provided as a Small Grant for Exploratory Research.